CRI: Collaborative Research: SMT-LIB, A Common Library and Infrastructure for Satisfiability Modulo Theories

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Collaborative Research: SMT-LIB, A Common Library and Infrastructure for Satisfiability Modulo Theories

Lead Proposal: CNS-0551646
PI: Tinelli, Cesare
Institution: University of Iowa

Proposal: CNS-0551697
PI: Stump, Aaron D.
Institution: Washington University

Proposal: CNS-0551645
PI: Barrett, Clark
Institution: New York University

Investigators at the University of Iowa, Washington University and New York University will develop a community resource for users and developers of solvers for satisfiability modulo theories (SMT). The solvers are logical reasoning programs used in software and hardware verification. The project will develop standards and interfaces to enable incorporation of solvers into verification tools and benchmarks and develop services for accurate evaluation and comparison of SMT solvers. These will support use by a broad community of researchers. Broader impacts of this project are the improvement of research capability in verification. Longer-range benefits will include more reliable future hardware and software systems.